Mathematical Sciences: Complex Analysis and Harmonic Analysis

This project continues mathematical research on a wide range of problems in complex analysis and integral geometry. It divides into three main areas, the first being concerned with residues, the division problem and applications. By this one understands the problem of finding solutions to the Bezout problem of finding multipliers which produce a constant sum of entire functions without common roots. This is an algebra problem in the sense that one wants to generate a certain ideal from a collection of functions. It may turn out that the ideal is the entire space. This type of deconvolution is only of interest when one can control the degree of the multipliers. Answers to such questions leads to effective methods in arithmetic intersection theory. The second line of investigation concerns integral geometry on the Heisenberg group. If the integral of a function taken over translates of the same curve by an underlying group always results in a constant value, can one make any assertion about the function? In one complex dimension the answer is taught in undergraduate classes. In higher dimensions the problem of deciding which are the admissible curves remains to be determined. Finally, related work will be done on the inverse conductivity problem which in applications refers to the problem of determining interior characteristics of a body from boundary measurements of conductivity. The research in this project represent a combination of deep theoretical ideas with close ties with applications to problems in electric impedance tomography, analysis of defects in materials, robotics and control theory.